CAREER: Realistically Efficient Geometric Algorithms

This CAREER computational geometry project will conduct
research in several areas:

- kinetic data structures for collision detection,

- geometric range searching data structures for both static
and moving points,

- Delauney and other triangulations for well-spread point
sets, and

- intersection and convex decomposition of smooth polyhedra.